Presidential Young Investigator Award: Research on Short Optical Pulses and Uses of Them

The investigation of triple mode-locking mechanisms is continued, including new dye combinations. In addition, fabrication of a colliding-pulse mode-locked laser, with the purchase of a copper vapor laser amplifier system is also anticipated. The use of a fibre:grating-pair compressor is being considered to generate five optical cycle pulses. Research is continuing in the acousto-optic interaction area. Various anomalous effects involving the polarization and wavelength of light incident onto y-cut, z-propagating L;iiN;ibO;i3 surface acoustic wave (SAW) devices have been theoretically investigated, both in the Bragg and Raman-Nath regimes. Experiments will be conducted on both SAW and bulk devices. A careful study of the diffraction efficiency dependence on p-polarized and s-polarized incident light (at various wavelengths) is being undertaken, especially as a function of deviation from Bragg angle and the internal confocal gaussian beam parameter.